Environmental Engineering Laboratory

This project permits undergraduate students to carry on experiments and individual research projects with an upflow pack-bed bioreactor. The pilot unit in this lab is used in conjunction with mutant bacteria cultures to study the effectiveness and kinetics of the aerobic fixed- film, submerged bed process in treating industrial and/or toxic wastewaters. The instruments funded with this award are necessary for monitoring the various parameters of the process and for analyzing various quality parameters in the raw and treated waste. The laboratory equipment includes: TOC Analyzer with accessories; TOD Analyzer with accessories; dissolved oxygen meters; COD test systems, BOD standard test units; spectrometer; binocular microscope; muffle furnace; glass still; total suspended solids analyzer; turbidimeter; balance; temperature logger; aspirator pump; and, other accessories. This award is being matched by an equal sum from the grantee.